Properties of Absolutely Minimizing Functions

DMS-0400674
Title: Properties of absolutely minimizing functions
PI: Michael Crandall, UCSB

ABSTRACT

The problem of finding an extension of a function given on the
boundary of an open
set into the interior of the set in a way which achieves the least
possible value
of some functional defined on such extensions is pervasive in
mathematics and its
applications. If the functional is the Dirichlet integral, one is led to the
Dirichlet problem for the Laplace equation. If the functional is, instead, the
supremum norm of the length of the gradient, uniqueness of minimal
extensions is
lost unless the problem is reinterpreted - the resulting notion is here called
"absolutely minimizing". Owing to work of Aronsson in the 60's and
Jensen in the
90's, one knows that, upon this proper reinterpretation, there is an associated
Dirichlet problem which has a unique solution. However, the partial
differential
equation involved is now a highly degenerate quasilinear elliptic equation, the
"infinity-Laplace" equation. Moreover, the infinity-Laplace operator must be
understood in the generalized sense of viscosity solutions. In the
original works,
the "length of the gradient" was the Euclidean length. For some other
notions of
length, such as the natural maximum norm, there is only an existence theory and
uniqueness is unsettled. This is one simple example of a basic question in this
arena as yet unresolved. Others include, even in the case of the
Euclidean length,
uniqueness in unbounded domains, the famous problem of
differentiability of infinity
harmonic functions (recently settled in two space dimensions by Savin), and the
possibility of other more refined results - perhaps generic - on the
structure of
solutions. These issues will be studied in this project.

The infinity-Laplace equation is an archetypal object in the subject called
"calculus of variations in L-infinity" by its founders. Roughly speaking, it
corresponds to designing for the worst case, clearly an important issue with
potential relevance to many fields. One well established area of
application of
absolutely minimizing functions is in image processing. While this project is
primarily mathematical, the questions asked are basic
and aimed at archetypes (as opposed to technically complex generalizations).
Success will illuminate the general theory and thereby its current and future
applications.